The Mechanism of Desensitization of Chromaffin Cells to Repeated Stimulation

A common characteristic of nerve cells is that as they are repeatedly stimulated, their responses are diminished. Less commonly, nerve cells will respond to repeated stimulation with enhanced activity. Such changes can be observed at all levels from a single cell to a complex organism, and are thought to represent a form of memory. This behavior is being studied in cells isolated from the adrenal gland of the cow. These cells are widely used as models of nerve cell behavior since they can be isolated and grown in culture, are embryologically related to neurons, synthesize and secrete neurotransmitters and provide sufficient material for biochemical studies. A special technique has been developed by the investigator to stimulate these cells repeatedly and reproducibly and to measure neurotransmitter secretion in real time. By manipulating the cellular control mechanisms that regulate protein phosphorylation, the cells can be make to respond to repeated stimulation by a steady increase in secretion, rather than a decrease. To further understand the cellular mechanisms regulating this response, the role of intracellular calcium levels in the phosphorylation of specific proteins will be studied. These studies promise to increase our understanding of cellular processes underlying the formation of memory.